Twelfth International Conference on Raman Spectroscopy, Columbia, South Carolina, August 13-17, 1990

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Professor Durig, a world-renowned spectrscopist will organize the Twelfth International Conference on Raman Spectroscopy. This conference will bring together spectroscopists and theoreticians from all corners of the world, and the NSF support will provide funds specifically earmarked to facilitate the participation of graduate students and postdoctorals. The meeting, with an expected participation of 500 scientists, will be held at the University of South Carolina, and will be comprised of plenary lectures, invited talks, and poster presentations.